CAREER: Study of Coexistence Restrictions of Cross-layer Designs in Wireless Networks

There has been an explosive growth of cross-layer designs proposed for wireless networks. These designs break the layered structure to actively exploit the dependence between protocol layers in wireless networks. However, the large number of cross-layer designs creates serious coexistence issues. The violation of layered structure may not comply with restrictions that constrain the coexistence among many cross-layer designs and other network systems, causing significant issues, such as degraded performance, inconsistent distributed decision making, network partition, and instability. The objective of this project is to systematically and rigorously categorize and analyze coexistence restrictions of cross-layer designs in wireless networks. In this project, coexistence restrictions of various cross-layer designs are theoretically modeled and analyzed. Different kinds of coexistence restrictions are defined, the conditions for their occurrences and their impact on network operations are revealed, and methods to check coexistence issues are developed. The project also seeks restriction-compliant protocol design techniques. This project serves as a major effort in the understandings of cross-layer designs in wireless networks and is the pioneer in providing systematic analysis of coexistence restrictions of cross-layer designs. The result of this project can be used to evaluate cross-layer designs’ limitations and potential problems. This will promote the acceptance of good cross-layer designs in real systems and prevent architecture failures in design integration. In addition, this project provides practical techniques for designing more compatible cross-layer systems. Ultimately, this will greatly enhance the flexibility and robustness of current and future wireless network systems.